Theoretical and Mathematical Physics

This proposal has two distinct parts. The first part concerns the evaluation of item and temperature dependent correlation functions in the one-dimensional Heisenberg model. The second is a study of SO (4) symmetry in the Hubbard model, its implications for spectral properties, correlation functions, and thermodynamical and transport properties. ***